Research on Improving Risk Management Through Improving Theory and Practice in Risk Perception and Risk Communication

The overall purpose of this project is to develop improved theoretical and practical understanding of risk perception, communication, and management. Specifically, the research will (1) examine cognitive models that people use in thinking and making decisions about risks; (2) develop improved risk communication methods based on these models; (3) examine the role of risk perception and communication in effective risk management; and (4) develop improved analytic approaches and tools for risk management. As part of the project, case studies will be undertaken in six areas: radon in homes, 60 hertz electromagnetic fields, solar ultraviolet light, seat belts, dam safety, and chemical carcinogens. Despite the importance of risk perceptions in risk communication and risk management, little research has focused on integrating theory and practice through multidisciplinary collaborative work. This innovative project will integrate theoretical models and empirical data from several case studies to develop improved methods for effective risk communication and management. It is expected that the project will provide important information for both analysts and decision makers. Specifically, it is expected that the results of the study will (1) contribute to the development of improved understanding of the role of risk perceptions in the decision making process; and (2) provide analysts and decision makers with more powerful methods for addressing difficult and complex issues in risk communication and management.